Building Evaluation Capacity Among Native American Indians. Influence By Design: Culture Based ABC'c of Evaluation to Impact Public Policies

This is a planning project that focuses on evaluation capacity building for Native Americans in the area of environmental science. It proposes to develop a culture-based curriculum on evaluation in Native American contexts through a partnership between Kansas State University and Haskell Indian Native University.